Floer theory in gauge theory and symplectic geometry

Abstract

Award: DMS-1007846
Principal Investigator: Yi-Jen Lee

The PI proposes to continue her study on the relation between
gauge theoretic invariants and Gromov-type invariants under the
framework of Taubess proof of Seiberg-Witten equals Gromov;
especially, its various Floer theoretic extensions. She also
intends to explore the rich implications of the equivalence of
various theories on both sides.

Symplectic Geometry has its origin from classical
mechanics. However, in spite of much progress made, many basic
questions remain unanswered. An example is the long standing
Weinstein conjecture, which states that there is a periodic orbit
on any compact contact manifold. In physics, "contact manifolds"
provide the framework to describe the motion of particles. On the
other hand, gauge theory arises from the theory of elementary
particles in modern physics. Surprisingly, many seemingly
unrelated invariants defined on both sides turn out to be
equivalent, and therefore facts that are easier to see on one
sides imply similar results on the other side, which might
otherwise be very difficult to establish. Taubes's celebrated
recent proof of the 3-dimensional Weinstein conjecture is an
example of many possible applications of such equivalence.